Democracy and Leadership

It is common knowledge that American presidents rely on private pollsters to provide them with a sense of contemporary public opinion. The relationship between presidents and their pollsters is routinely discussed in the mass media, and presidents openly refer to their public opinion surveys. This close and open relationship between the White House and pollsters, however, is quite recent. It began in earnest during the administration of John F. Kennedy. This research investigation addresses the question: what difference do White House polls make in presidents' policy positions. In short, do polling results affect the decisions of presidents? Specifically, the researchers investigate the relationship between the policy positions of American presidents and the public opinion surveys that they assembled. The opinion surveys are located in presidential archives and will, for the first time, be systematically collected. Because scholars have previously relied on published polls, the surveys in presidential archives offer new and better data for examining the president's relationship with the mass public. The analysis focuses on two presidents; John F. Kennedy and Lyndon B. Johnson. In addition to collecting the survey data, the researchers will examine evidence concerning other possible invluences on presidential decision making, such as partisan divisions in Congress and economic conditions. The objective is to evaluate the significance of presidents'polling results relative to the influence of other political and institutional variables.